Microcomputer Laboratory Facility to Upgrade the Teaching ofUndergraduate Numerical Analysis and Related Courses

The Department of Mathematics and Computer Science at California State University, Los Angeles will establish a microcomputer laboratory for advanced undergraduate courses. The computation nature of the numerical analysis, numerical calculus, linear programming courses will be revised and applied linear algebra will be added to the curriculum. Two thirds of the student body are minorities. The laboratory will consist of 30 computers with access to all campus computers, video projector and printing stations. The grantee is providing an equal sum obtained from non-Federal sources.